Workshop on Advanced Data Storage Technology for Computer Systems, December 19-20, 1989, Pittsburgh, Pennsylvania

This two-day workshop identifies research needed for data storage in future computer systems. Research needs in both computer systems and data storage technology are addressed. The benefits of the workshop include a final report drafted by the participants.